Workshop: Ultrahigh Field NMR and MRI: Science at a Crossroads

The workshop on Ultrhigh Field NMR and MRI has three objectives: 1) To establish science drivers for ultrahigh field NMR/MRI; 2) To discuss opportuities that new technologies such as high temperature superconductors bring to NMR and MRI; and, 3) To develop a roadmap for the field.